Physics of Extra Dimensions and Theories Beyond the Standard Model

The purpose of this research is to investigate the broad implications of theories with
extra dimensions and to construct realistic models of particle physics based on these
ideas which address issues which are unresolved by the standard model. During the
past few years, advances in D-branes and in the theory of extra dimensions have
sparked a renaissance in supersymmetric model building. With branes and extra
dimensions, the phenomenological implications of Supersymmetry is much richer than
ever before. The proposal has three directions. The first is to construct realistic unified
theories in higher dimensions. The second is to understand electroweak symmetry
breaking from the perspective of Supersymmetry and extra dimensions, and the third is
to investigate unified theories in strongly curved higher dimensional space-times.